Modeling the Continuous Casting of Steel

This proposal is to develop comprehensive, self-contained methods for mathematical analysis of the continuous casting process for steel billets in the early stages of solidification. The interaction of the heat transfer, freezing and stress development process will be examined using three-dimensional finite element method techniques. The principal novelty of this project is to iteratively determine the thermal and stress state of the casting by examining the coupling between these two states. This controls the formation of an air gap between the mold and solidifying strand. The project represents a continuation and extension of earlier work, which was restricted to round billets. Accurate correlation was found between computed results and experimental observations. New research will focus upon three-dimensional effects, especially those associated with defect formation near corners of cast billets.